Operations and Maintenance of the Ocean Observatories Initiative (OOI)

This award is for the operations and maintenance of a multi-scale, multidisciplinary ocean observing system that will provide a permanent presence in the ocean, with unprecedented power and interactive capability for advanced sensors and platforms, and real-time access to data and advanced visualization tools. The Ocean Observing Initiative (OOI) will transform ocean research and education by establishing an open, integrated, networked observing system that will enable next-generation research, discovery, education, and public engagement on a range of topics as broad as climate
variability and ocean ecosystems, turbulent mixing, plate tectonics, and sub-seafloor biogeochemistry. The OOI will enable multiple scales of marine observations to be integrated into one observing system via common design elements and an overarching, interactive cyberinfrastructure. The Consortium for Ocean Leadership will coordinate and manage the initial operation of the OOI, with subawards to the Implementing Organizations for the Coastal/Global Scale Nodes, the Regional Scale Nodes, Cyberinfrastructure, and Education and Public Engagement. The coastal-scale assets of the OOI will expand existing observations off both U.S. coasts, creating focused, configurable observing regions. Regional cabled observing platforms will “wire” a single region in the Northeast Pacific Ocean with a high speed optical and power grid. The global component addresses planetary-scale changes via moored open-ocean buoys linked to shore via satellite. A unifying cyberinfrastructure will link all the components of the system, and permit researchers to control sampling strategies of experiments deployed on one part of the system in response to remote detection of events by other parts of the system. The whole of OOI allows scientists and citizens to view phenomena irrespective of the observations' sources (e.g.,coastal, global, regional, ships, satellites, IOOS).